Engineering Creativity Award: Expert System for Analog Circuit Analysis

The objective is to build an intelligent system for design of analog integrated circuits. The ultimate goal is to automate the design process with a tool performing the following four functions: l) It prepares symbolic equations describing circuit specifications in terms of cuicuit parameters, 2) A database of design goals is created, 3) The system is an intgelligent front end to a set of supporting design tools such as circuit simulators, layout tools, etc., 4) The system stores and uses design expertise from a library of circuit descriptions. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.